Integrating Parallel Processing as a Tool Throughout the Undergraduate Computer Science Curriculum

The laboratory provided by this grant allows and encourages the distribution of parallel processing throughout a Computer Science curriculum where it is already established. Parallel processing is being used as a tool as well as an object of study. In addition, it is being used to support term projects and independent student research. Through this project, seven additional courses can include parallel processing. The laboratory provided by this grant includes a SIMD parallel processor that is ideally suited for many of the assignments and projects in areas such as image processing, speech and language processing, and neural networks. In addition, a MIMD processor is being used in some Artificial Intelligence courses, such as Natural Language Processing and Machine Learning, and in Graphics courses. Students from disciplines such as physics and mathematics have access to the parallel processing lab for research. This project can demonstrate the feasibility of using parallel processing on a large scale in the undergraduate computer science curriculum.